TC: Medium: Collaborative Research: Rewriting Logic Foundations for Verification and Programming of Next-Generation Trustworthy Web-Based Systems

Distributed Concurrent Maude ( DCMaude )

The rewriting model of computation is simple , yet general and flexible . A system
of any kind , for example , an algorithm , a database , a hardware system , a
programming language , a network protocol , a sensor network , or the molecular
biology dynamics of a cell , can be modeled by a set of rewrite rules that
describe the systems behavior . The rewriting model of computation is
intrinsically concurrent , without any need for explicit concurrency constructs .
Any set of rules that apply to nonoverlapping system components can execute
concurrently . For a large distributed system such as a network or a cell , this
means that at any given time thousands or millions of concurrent transitions may
be happening in parallel .

Maude is a language based on rewriting logic . The current Maude implementation
provides a high performance rewrite engine , as well as builtin search ,
unification , and model checking tools to support execution and analysis of
systems specified in Maude . To realize inherent concurrency of rewriting , the
proposed project will develop an implementation of Maude called Distributed and
Concurrent Maude ( DCMaude ) that will exploit the concurrency available in
multicore/multiprocessor machines , and support distributed computing and systems
programming . The rewriting semantics of Maude supports seamless transition
between concurrent and distributed execution of a system : execution in one
process , multiple processes/cores , or multiple machines . In addition to built in
strategies for concurrency , the design of DCMaude will include a means for the
programmer to control concurrency at a high level of abstraction in a
declarative way .

DC Maude will provide new methods and tools that can significantly improve both
the design and the implementation of open distributed systems , including
web-based systems and next-generation networks .